Workshop on the Frame Problem

The frame problem is one of the most fundamental problems in Artificial Intelligence. The frame problem may be generally defined as the problem of finding a representation form permitting a changing, complex world to be efficiently and adequately represented. Since its introduction by McCarthy and Hayes in 1969, the frame problem has been the object of much fascination and debate (Shoham, 1987). Researchers from a variety of disciplines, such as computer science (AI), cognitive science (psychology), and philosophy are actively assailing the frame problem from widely differing perspectives. This workshop will be useful in bringing together proponents of these various perspectives for a focused exchange of ideas that should lead to progress through increased interdisciplinary cooperation.